Characterization and Durability of Porous Materials- Equipment

This project will obtain equipment to be used in performing research projects in the fields of structural, environmental, and geotechnical areas.